Proposed Establishment of Pacific Rim Application and Grid Middleware Assembly (PRAGMA), 2002-2003 Workshop series

0216895
Arzberger

This is a proposal submitted by Dr. Peter Arzberger requesting funds to establish a Pacific Rim and Grid Middleware Assembly (Network). To accomplish this, he requests the involvement of domain scientists and technologies in the Pacific Rim countries through a series of working meetings (3 in 2002, 1 in 2003, and 1 in 2004) to accelerate daily use of the GRID for advancing science. The development and deployment of the East Asia GRID middleware and application network is critical for the cooperation in information technology between the U.S. and East Asia. This effort will promote a regional collaboration in software development and form a partnership between the U.S. and key western Pacific Rim countries, such as Australia, China, Japan, Korea, Singapore, Taiwan, and Thailand. Efforts to promote this technology throughout Asia and the world could enhance the development of worldwide standards to make grid-enabled computing and resource sharing a reality. The initial efforts will be supported jointly by the Chinese Academy of Science, Korea Institute of Science and Technology Information, the Taiwan National Science Council and NSF.